Research in Elementary Particle Physics

Research in elementary particle physics will include studies of several aspects of quantum field theory in 3 + 1 dimensional space-time, especially theories with a supersymmetry between boson and fermion constituents of matter. Properties of the superconformal algebra and its central charges, possible c-theorems, chiral anomalies, and the non-perturbative structure of supersymmetric theories will be studied. The viewpoint to be taken emphasizes the role of space-time correlation functions. Quantum field theory is the major theoretical framework for the interpretation of experiments in elementary particle physics, and supersymmetry is widely considered necessary to extend our understanding beyond the level of today's standard model. The problems to be studied relate both to fundamental and phenomenological aspects of the subject.